Social Movements, Elections, Public Policy

American public policy is remarkably stable and resistent to change. Yet over the past forty years, dramatic changes have occurred in American public policies toward women in particular. This sophisticated empirical study develops and tests a political process theory to account for the political success of the women's movement in the United States. Specifically, this study uses longitudinal data on women's movement activities, public opinion toward women's issues, and congressional activity to assess the nature and extent of the effect which the women's movement has had on American public policy. In addition to explaining how the women's movement has shaped the development of public policy, the study should contribute to our understanding of social movements more generally and how they influence the policy process.